Old Carbon Project

"Accelerator mass spectrometry (AMS) was first developed in 1977 as a way to
directly measure the ratio of radiocarbon (carbon-14) to stable carbon
(carbon-12) in organic material and thus to determine when the organism died
using samples of a milligram or less. For reasons that are not completely
understood the technique is presently limited to samples that are 60,000
years old or younger. Even for samples, e.g. carbon from oil, natural gas
(methane) or coal, that are millions of years old this limit applies. It
thus prevents the dating of very old samples. It also prevents the
selection of sources of natural gas for use in the production of very large
volume liquid scintillation detectors for the measurement of low energy
neutrinos. The measurement of these and higher energy neutrinos from the
sun is presently an important scientific endeavor. One would like to find
sources of methane that have carbon-14 to stable carbon ratios corresponding
to 110,000 years, or, perhaps, even to 150,000 years from which
scintillation liquid can be manufactured to allow the measurement of the
lowest energy solar neutrinos. The proposed research has the aim of
measuring such ages of methane and other organic material by AMS."